Mathematical Sciences: Geometry of Manifolds of Strictly Negative Curvature

The investigator will be studying the Riemannian geometry of manifolds of strictly negative curvature. Particular attention will be paid to symmetric spaces and 2-step nilpotent Lie groups with invariant metric. Results will include estimates on curvature bounds and metric geometry.